NGS/Models to Support Performance-Engineering of Global Computations

Models to Support Performance-Engineering
of Global Computations

This Proposal focuses on modeling and scheduling methodologies that will enable global computing,
thus extending Computational Grids and high-performance distributed computing to
a global level.
There are three objectives to the work proposed:
1. develop novel models of complex emerging global and Grid computing platforms for
both resource availability and resource classi_cation, attempting to unify the performance characteristics
of both platform types.
2. Using these models, develop scheduling strategies which enable robust, predictable performance
and deliver high availability for applications.
3. validate these approaches with two \real-world" global computing applications, using both
novel simulation techniques and if possible a real global computing system.
The predictive models and simulation
framework will advance the foundational understanding of both Grid and global computing environments.
These developments particularly will be key to advancing the state-of-the-art of the global
computing infrastructure by addressing the computer science research questions that are relevant
to both communities.